Conference: CI PAOS: Advancing Research Data Management through Enhanced Vertical Interoperability

This workshop aims to advance research data management by deepening understanding and implementation of vertical interoperability among varied digital tools across the research data lifecycle. The workshop's goal is to identify and overcome barriers to interoperability between tools that perform distinct functions yet are integral to managing data seamlessly from inception to archive. By bringing together experts and stakeholders, the aim to develop practical solutions and guidance to achieve comprehensive FAIR data practices.